REU Site: Undergraduate Research in Mathematics at Lafayette College

Three research projects will run each summer. Possible topics include discrete math, knot theory, geometric group theory, differential equations, probability and applied math. For current information, see http://ww2.lafayette.edu/~math/reu/.